Combinatorial Optimization for Transaction Evaluation

9523509 Sheble The Extended Brokerage System (EBS) is a multiple timed period, multiple commodity implementation of previous research and development of an electric market exchange. The present evaluation of transactions occurs only as a direct sale of electric production beyond schedule capacity. The EBS is directed at evaluation of transactions beyond present schedule techniques to increase the economic benefit of transactions between utilities and independent power producers beyond electric sale only. The possibility of selling the raw materials is included if a more economic solution can be found. The bids for potential transactions are not based on unit schedules but on a market assessment of the price of electricity either in product form or as a raw material (e.g.coal, oil, natural gas). The net result should b increased usage of the transmission grid across the country and a decrease in the cost of electricity to the consumer. The EBS is appropriate if the industry is reorganized horizontally or if some form of the present vertical integration is maintained. Since the focus of the on-going deregulation is to price electricity as any other market commodity, the development of an electric market place (EBS) is very timely research and development activity to provide the foundation for an efficient and comparably fair pricing mechanism. Only through open markets can a true price discovery process function to find the optimal schedule given all constraints and all resources as outlined in the proposal. ***